SGER: Biophotonics: Nanoscale Fabrication of Tissue Engineering Scaffolds by Stimulated Emission Depletion Microscopy

0630545
Campagnola

The applicant will implement the use of MPE Stimulated Emission Depletion (STED) microscopy as a nanofabrication tool in order to achieve minimum features sizes (50-100 nm) that are much smaller than possible through single beam MPE (~300-500 nm). The integration of STED with his current MPE fabrications methods will allow him to create tissue scaffolds with precisely defined micron and nanometer-sized features with the biochemical compositions that reproduce the native structure. Such replication is necessary to promote cellular functions such as adhesion, differentiation, proliferation, and Extracellular Matrix (ECM) synthesis and deposition.